Finding a Way: Positive Pathways to Adulthood of Disadvantaged Urban Youth

The proposed project will explore how mode of high school exit fits into the larger context of disadvantaged young people's transition to adulthood. In-depth, qualitative interviews will be conducted with 80 young adults (age 23), selected from among the low income families in a larger, on-going panel of Baltimore youth. Interviews will be divided among four groups, balanced by race (African-American; White) and sex: 1) 20 who graduated from high school without interruption and went on to college; 2) 20 who graduated without interruption but did not go to college; 3) 20 who completed high school or a GED after first dropping out- "recovered" dropouts; 4) 20 dropouts who neither returned to school nor completed a GED- "continuing" dropouts. These qualitative interviews, together with extensive survey and school record data that extend back to first grade, will be used to identify sources of resilience in low income urban youths' lives that help them overcome obstacles to a successful adolescent-to-adult transition.